Notre Dame College: Connection to the Internet

9528286 Grassman Notre Dame College: Connection to the Internet Notre Dame College of Ohio requests support from NSF for connection to the Ohio Academic Resources Network (OARnet). OARnet, a midlevel network in the state of Ohio, will provide operations management and information services and it will give the campus access to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The campus needs the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the Notre Dame College campus as well as the community in general.